Evaluative Study of the Comprehensive Partnerships for Mathematics and Science Achievement (CPMSA) Based on the Tabulated Indicators for Systemic Changes (TISC)

Systemic Research, in collaboration with Research and Evaluation Associates, Inc., propose to conduct a three-year CPMSA evaluative study. The proposed evaluative study effort consists of four distinct deliverables:
1. TISC data collection: Collect upgraded annual TISC data (both quantitative and qualitative) for the next three years.
2. Annual CPMSA Fact Book with a Narrative Progress Summary: Compile and publish CPMSA Fact Books based on TISC with an additional section for a narrative progress summary.
3. CPMSA Case Stories: Publish exemplary CPMSA success stories based on two site visits each year.
4. CPMSA Evaluative Study Report: Publish an overall program evaluative study report each year focusing on causal inferential statistical models.